High Plains Rural Systemic Initiative

9554467 Belgarde This proposal is to fund the High Plains Rural Systemic Initiative (HPRSI). The Turtle Mountain Community College is serving as the fiscal agent for a coalition of 17 tribally controlled colleges in a five-state region of the Upper Great Plains that includes Montana, Nebraska, North Dakota, South Dakota, and Wyoming. The initiative has four major components: 1) Reservation Initiatives, that will establish a process to increase the native cultural knowledge and content into the science and mathematics curriculum; 2) Technology Development, to promote the development and use of technology as a teaching tool by establishing networks across the region; 3) Partnership Development, to increase the connections between RSI school and all interested stakeholders; and 4) Commissioned Studies, a special initiative to support the Reservation Initiatives component by providing teachers and faculty members an opportunity to research and develop viable teaching models for tying science and mathematics education to culturally appropriate materials and methodologies for systemic change. The Reservation Initiatives component and the Commissioned Studies are viewed as the "seedbed" to begin the process of change at each of the 18 sites involved in the HPRSI (17 colleges, plus 1 reservation in Wyoming that is not served by a college). It is important to acknowledge the differences among these tribal communities, yet there are themes that provide a common ground in their approach to educational reform, such as: understanding the cultural behaviors in children and adults in order to facilitate a higher level of learning; knowledge and understanding of Native/indigenous knowledge in science, mathematics and technology; acknowledging and utilizing the wisdom and knowledge of native elders and other cultural expertise to promote the integration of the cultural knowledge base into a challenging science and mathematics. The High Plains Rural Systemic Initiati ve will promote systemic change in its five-state region by providing program coordination, staff support, and program assessment that takes into account both science, mathematics, and technology subject matter and the cultural knowledge of the respective tribal group. During the first year the HPRSI will sponsor six Reservation Initiatives at the Sinte Gleska University, South Dakota, Dull Knife College, Montana; Nebraska Indian College, Nebraska; Turtle Mountain Community College, North Dakota; and the Wind River Reservation in Wyoming. The activities will improve curriculum and instruction for science and mathematics in grades K-14 in collaboration with comprehensive initiatives in the 5 states; including the AMP program at Montana State University; the Montana, Nebraska, and South Dakota SSIs; and other reform initiatives.